An Experimental Evaluation of a Matching Market Mechanism

Over the last three decades, insights from market design have had a tremendous impact on
matching markets without prices. Economists have helped re-design the mechanisms for
matching new doctors to hospitals, for assigning students to schools in a number of large school
districts, and for optimally matching kidney donors to recipients. Despite the apparent success of
market design in these markets, there is remarkably little empirical evidence of the impact of
these reforms on market and match outcomes. This project will provide the most credible
evidence to date of the impact of matching using a common market design mechanism on match
outcomes in the context of matching Army officers to positions. Each year, over ten thousand
officers apply for transfers to new units within the military. This project will measure the impact
of using a common market design algorithm or the status quo mechanism on match outcomes,
like officers’ retention and performance.

Each year, over ten thousand officers apply for transfers to new units within the military.
Currently, this officer to unit matching is implemented manually by the US Army’s Human
Resources Command (HRC). This project uses a randomized controlled trial to measure the
impact of replacing the status quo assignment process with the deferred acceptance algorithm on
match outcomes, like officers’ retention and performance. Specifically, disjoint markets, defined
by officers’ rank and specialization (e.g. Captains in engineering) were randomly assigned to
determine matches using either the deferred acceptance algorithm or the status quo mechanism.
This will provide the first evidence from a randomized controlled trial about the impact of a
market design intervention on match and market outcomes.